New Undergraduate Course Development: Teaching Bioinformatics through Collaboration and Inquiry

Interdisciplinary (99) This project is adapting learning resources from a number of sources, including an existing program in bioinformatics at Wright State University (EIA-0122582), and work undertaken at the National Center for Biotechnology Information and the Human Genome Project, for use in a core upper-division bioinformatics course under development by a computer scientist and biologist. Four teaching and learning modules suitable for both biology and computer science students form the basis of the course. These include a set of lesson plans incorporating in-class assignments, computer lab and biology lab exercises, and a set of hands-on group projects. Inquiry based teaching and learning and cooperative group projects are planned for encouraging interaction between students from different academic backgrounds.